Long and Medium-Term Research: Astrophysics Research at Cambridge

Long and Medium-Term Research: Astrophysics Research at Cambridge This award is under the Long and Medium-Term Research at Foreign Centers of Excellence Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a three-month postdoctoral research visit by Dr. Paul Green to work with Dr. Martin Rees at the University of Cambridge. Dr. Green plans to study the dependence of UV emission-line parameters on soft X-ray luminosity in quasars, using samples of quasars with no emission-line bias. He will measure IUE equivalent widths and Einstein X-ray fluxes to determine the relative importance of the UV and X-ray ionizing continua to emission from the broad line region of quasars. He will analyze the potential of an X-ray "Baldwin effect" for use as a standard candle in cosmological tests. The award recommendation provides funds to cover international travel and a stipend for three months.